Research Experiences for Undergraduates at Clemson University

Professor Edith J. Parsons and other members of the Chemistry Department at Clemson University are being supported to start a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1991-93, ten undergradaute students will spend ten weeks each summer actively engaged in a variety of research projects. Some of the projects involve use of microwave energy to effect chemical reactions, synthesis of organocopper and organophosphorous compounds, analysis by atomic spectroscopy, and characterization of metal oxides formed using sol-gel procedures. Faculty-student interactions will be fostered through activities such as informal luncheon presentations, departmental seminars, and optional minicourses. Students will present the results of their research at a closing symposium.